Accomplishment-Based Renewal: Investigations in EconometricModels 

This project is an important extension of the recent work of this very talented researcher. The general area in which Professor Hausman is working in known as the errors-in-variables econometric model. It is well known that variables used in economic research are susceptible to measurement error. The errors can derive from many sources. For example, published survey data might include clerical errors or incorrect information, and accounts of national expenditures, investment, income and so on are highly aggregated. The magnitude of the errors is not known to the researcher, but the distributional form the errors might take can be assumed. Since the effects that these errors can have on the final analytical results depend strongly on the distributional form and on the statistical estimation technique, knowing precisely the properties of various error generating processes is therefore quite important. Past research by Professor Hausman and his colleagues has shown that errors of measurement are not so severe if the errors are linear. In this case many of the usual econometric estimation techniques yield consistent estimates. If, however, the errors follow a nonlinear process, the effects on the results are much more pronounced. In this project Professor Hausman analyzes the effects of nonlinear errors in econometric models. He shows that commonly used techniques produce inconsistent estimates, and thus ambiguous results. New estimators are derived which yield consistent estimates in a general nonlinear model, and the asymptotic properties of these new estimators are examined. By approximating the nonlinear error process with a general, semiparametric linear process, Professor Hausman derives instrumental variables which allow for the identification and consistent estimation of structural econometric models. The techniques are applied to data from the Consumer Expenditure Survey for estimate expenditure functions for food in the U.S.